Enhancement Mechanism in the Nucleate Boiling and Convective Vaporization of Liquids on Microconfigured Surfaces

Boiling is one of the most important and complex heat transfer mechanisms. Recent focus on heat dissipation problems for submicron electronic circuits brings new motivation for better understanding of boiling. This project concerns studies of direct phase change and nucleation processes on microconfigured silicon substrates. Recent studies by the PI employing 11.5 m features at a density range of 0.4 - 2 (10)5 per cm2 showed a 350% boiling enhancement in water and the elimination of hysterias and overshoot in FC-72. Future studies include effects of microfeature spacing, geometry and surface treatments, development of a more realistic model, micro-second level visualization, and the measurement of temperature fluctuations. Subcooled boiling measurements will also be made.